Theoretical Studies of Solar Flares and Active Regions

This theoretical research will be conducted to understand the role of magnetic fields and current systems in solar flares, and to understand the interaction of plasma flows with radiation in both the chromosphere and corona of flares and active regions. Specifically, this effort will further develop an analytic description of magnetic reconnection at an X-type neutral point, and extend the studies to numerical simulation; study the influence of gas pressure on photospheric magnetic fields as inferred from vector magnetograms; use active region magnetic field models to determine cross-sectional area variation along coronal loops for use in hydrodynamic and particle studies; improve a model for the evolution of the gradual phase of flares, which reduces the complex hydrodynamic description to a simple ordinary differential equation, making simulations of the entire flare feasible; apply similar techniques to studies of thermal stability of active region loops; and develop a new, simpler; faster, radiation-hydrodynamics code for studies of the impulsive chromospheric flare. These problems will be studied with analytic and numerical techniques applied to the gasdynamic, radiation transfer, and magnetohydrodynamic equations. This work will aid in interpreting spectroscopic data and vector magnetograms from ground based optical telescopes during MAX '91. ***